Cooperative Learning in an Investigative Genetics Lab

9451404 Wing This proposal describes current revisions being made in the laboratory portion of Biol 322 Genetics. The Genetics course is required for all Biology majors. The enrollment in the Genetics course has, over the past six years, been approximately 50% women while our graduates over the same time period have been only 45% women. The revisions being made in the Genetics lab are designed to promote cooperative learning experiences which are frequently more positive educational experiences for women than traditional pedagogical methods. It is hoped that the combination of cooperative and investigative lab experiences provided in the Genetics lab will encourage more women to stay in the discipline of Biology. In order to give students the opportunity of working on projects related to the area of molecular genetics, equipment in addition to what is currently available in the department is required. Thus, this proposal requests matching funds for the purchase of six horizontal electrophoretic systems, six vertical electrophoretic systems with appropriate power supplies, densitometer, and transluminator. Also requested are three microcentrifuges, pipets, incubators, water baths, and vortex mixers needed for the isolation and preparation of samples for electrophoresis.